A Computational Infrastructure for Embedded High Consequence System Development

Project Summary

The objective of the proposed activity is the development of
a high-assurance function, called a classloader. This function
carries out the static aspects associated with the execution
of Java classfiles as it is defined by a concrete implementation
of the Java Virtual Machine (JVM). The implementation
being targeted is called the Sandia Secure Processor (SSP). To
date, a prototype of the SSP has been developed in VHDL which
synthesized to < 40K gates and is capable of operating near 75MHz.

The goal is to compose the classloader and the SSP to produce a
Java-centric computational component capable of being used in
embedded system development. Intended application areas for this
technology encompass high to ultra-high consequence embedded systems.

A primary application domain for which this technology is targeted
has imposed the following constraints on the system:

1.There must be the option of building the processor
using rad-hard technology.

2.An open source for the system must be available allowing
detailed design analysis and testing of all aspects of
the system (possibly down to the gate level).

3.Certification evidence should be provided by formal
mathematical proofs of correctness to the extent possible,
and strongly convincing evidence must be provided in all
other cases where mathematical proofs have not been achieved.

4.A security policy must be strictly enforced ensuring that
any program is either rejected as incorrect by compile-time
or run-time checks, or its behavior must be understandable by
reasoning based entirely on the language semantics, independent
of the implementation. In particular, no security violation must
be permitted to succeed regardless whether it is the result
of an inadvertent error, or a malevolent well thought out attack.

Correctness-preserving program transformation is the method that is being
employed to implement a high-assurance classloader function. In this approach,
the functionality of the classloader is realized via a lengthy sequence of
small "intellectually manageable" rewrite steps. Here, a rewrite step is
considered to be intellectually manageable if its correctness can be formally
verified in practice. In order to achieve this goal, novel transformation
techniques are being explored and developed.

This project will significantly impact the computer science community
by (1) advancing knowledge in the area of program transformation,
(2) demonstrating to industry that formal methods (in this case program
transformation) can be effectively applied to real-world problems, and
(3) providing a computational infrastructure (i.e., the SSP) that is
suitable for embedded high-consequence system development.